CAREER: Transition Pathways in Complex Systems. Theory and Numerical Methods.

Abstract of NSF Proposal 0239625

PI: Eric Vanden-Eijnden, Courant Institute of Mathematical Sciences

Title: Transition pathways in complex systems

The description of complex system driven by rare events, or
conformations, is a major challenge in applied mathematics and
computational sciences. Well-known examples of conformations include
nucleation events during phase transition, conformational changes in
molecules, thermal activated switching of magnetic materials, and
chemical reactions. The disparity between the execution time of the
conformation event and the waiting time between these events is
typically so large that it impossible to simulate the dynamics of
these processes by solving directly the underlying dynamic equations.
This project is a combined theorical and numerical effort to describe
and simulate these rare conformation changes. The theoretical
description of transition pathways in complex systems leads to
challenging problem in probability and stochastic processes theory
which require to go beyond the standard tools of large deviation
theory and extensions thereof. These new theoretical tools will be
developed so as to naturally lead to efficient algorithms, well-suited
for the numerical investigation of the transition pathways required in
realistic complex systems.

Applied mathematics has much to contribute, and much to gain in
understanding via a coordinate program of analysis, simulation, and
education the mechanisms by which rare conformation changes arise in
complex systems. Topics to be addressed include: (a) the development
of appropriate theoretical tools for the description of the transition
pathways in complex systems; (b) the development of efficient
numerical algorithms for the identification of these pathways; and,
(c) the development of courses at undergraduate and graduate levels in
applied stochastic methods which will provide the students with the
necessary background to do research on these topics at the interface
between mathematics, computer science, and the natural sciences.
Successful pursuit of these issues requires a multidisciplinary
effort, drawing expertise from computational sciences, applied
mathematics, in the multiple fields in the natural sciences which
involve complex dynamical systems. The students and postdoctoral
scientists participating this effort will gain flexibility and
perspective through exposure to these many disciplines.